TOGA: Moored Observations of Upper Ocean Structure During the TOGA-COARE Intenvice Observing Period (IOP)

In this project, the PI will deploy an array of four moored profiling current meters (PCM) in support of the intensive observation period (IOP) for TOGA-COARE. Each mooring will measure temperature, salinity, and velocity fluctuations between about 20 meters and 200 meters' depth at regular intervals for a period of one year. Characterization of these fluctuations will be used to study the response of the upper ocean to variations in surface forcing, using the vast array of supporting measurements to be made during the COARE IOP.